Acquisition of a CAMAC Based Data-Taking System and Computers to Enhance Research Programs at an Undergraduate Institution

9413439 DeYoung The data-handling equipment furnished by this action will be used in a wide range of research activities, including: heavy-ion nuclear physics, low energy nuclear physics, nuclear theory, and biomechanics. This equipment is necessary to update and broaden the scope of this research. ***